Biogenesis of Chloroplasts: Import and Assembly of Nuclear Encoded Chloroplast Proteins

Dr. Cline wishes to determine the mechanism by which polypeptides synthesized in the cytosol are transported into the thylakoid membranes within the chloroplasts. Thylakoids are internal membranes within cholroplasts. Approximately 50% of thylakoid polypeptides are synthesized within the chloroplast; the remainder in the cytosol. Recent evidence suggests that the cytosolically synthesized proteins achieve their functional location by a "soluble intermediate' pathway, in which precursor proteins pass through both envelope membranes, traverse the aqueous stroma in soluble form, and insert into thylakoids by a second transport (assembly) process. Dr. Cline's laboratory has reconstituted the assembly process with chloroplast subfractions, but has not yet rigorously demonstrated its involvement in an intact system. The proposed studies will directly investigate the soluble intermediate pathway and involvement of the in vitro assembly process by importing a thylakoid precursor protein into chloroplasts under conditions that prevent assembly. Selective conditions will be identified by thorough analysis of the energetics of the assembly process. A second objective will examine the possibility that chloroplast synthesized proteins. and imported proteins are inserted into thylakoids by the same assembly apparatus. Assembly of chloroplast synthesized proteins will be reconstituted in vitro and the assembly requirements compared with those for assembling imported proteins. This work will increase our knowledge of the biogenesis of chloroplast membrane proteins and will add to a more general understanding of how proteins cross membranes.